Representation Theory and Double Affine Hecke Algebras

he PI intends to undertake a combinatorial study of structures
arising from affine algebras with applications to representation
theory, mathematical physics and q-series.
The primary combinatorial objects are crystal graphs on the one
hand and rigged configurations on the other hand. Crystal bases
provide a combinatorial description of the deep theory of crystal
bases of modules over quantized universal enveloping algebras
developed by Kashiwara and Lusztig: As the quantum parameter
q tends to zero, these bases are described precisely by the
crystal graphs encoding nearly all the essential algebraic data.
Rigged configurations on the other hand encode the particle
structure of the underlying physical model and lead to fermionic
formulas. It is proposed to study the crystal structure
on rigged configurations and to tackle the long-standing problem
of a combinatorial expression for the fusion coefficients.
These studies will have applications to q-series, in particular
the Bailey lemma, the X=M conjecture, and the theory of symmetric
functions.

There are several ways of solving certain models in statistical
mechanics, namely via the corner-transfer-matrix method and
the Bethe Ansatz. Even though the two methods lead to very
different looking answers, they describe the same solutions.
From the mathematical perspective this suggest that there exists
a one-to-one map between the two indexing sets that describe the
solution. The elements in the index set corresponding to the
corner-transfer-matrix method are called crystal bases. The elements
in the index set corresponding to the Bethe Ansatz are called
rigged configurations. The PI proposes to study the map
between the two indexing sets, its properties and generalizations
in detail. This will have applications in many diverse areas
of mathematics and physics, such as representation theory,
combinatorics, and statistical mechanics.